HCC Interdisciplinary Live Rock Project

The purpose of this project is to create a practical, hands-on applied learning experience for students enrolled in courses of aquaculture, environmental science technology (EST), economics/business and humanities programs of the College. This experience will involve students, under the direction of participating faculty in: the research of the culture of aquarium live rock; the environmental monitoring of live rock culture and harvesting activities; the aesthetics of live rock presentation; and the economics and marketing of live rock aquaculture. Recent federal and state restrictions have constrained the collections of natural live rock (a $10,000,000 year business) in all state and federal waters. Only aquaculture offers a viable solution to revitalizing this business in the continental United States. Students and faculty, with the assistance of partners, will work in three teams (Aquaculture, Environmental and Marketing) over a three year period to address the research concerns mentioned above. Students working in each team will not only gain applied experience of the particular team discipline but will be provided with the opportunity of transferring and applying what they learn in the classroom to an applied project. They will also not only gain the cognitive knowledge/skills of the other team areas but will gain interpersonal/team working skills by working closely with the members of the other teams and partners. Evaluation of the project will be accomplished by: traditional and alternative assessment measures of student achievement such as grades, project assignments, field assignments, testing, etc; student satisfaction surveys; responses to research questions and reports; and by yearly reviews by the HCC Aquaculture and EST Advisory Committees, and the project partners. Knowledge gained from the results of this project will be made available to the aquaculture industry, the regulatory community and educational community by workshops, reports and other publications .